MRSEC: Micro- and Nano-Mechanics of Electronic and Structural Materials

The Materials Research Science and Engineering Center (MRSEC) at Brown University supports an interdisciplinary research program on the mechanics of materials at the atomistic and microstructural level. The research is carried out in one interdisciplinary research group, with appropriate seed projects. Within the IRG one major thrust is the study of the effect of stress on the performance of electronic nanostructures and nanodevices. This research has potential impact on understanding how stress effects the design and performance of atomic scale sized lasers and electronic devices. The experimental results are modeled using the quasicontinuum model developed at Brown. The second thrust in the IRG is concerned with the investigation of the micromechanics of materials with complex microstructures. Emphasis is on the interface between two types of systems such as bicrystals of aluminum, aluminum alloy, and synthetic bimaterials. Computational techniques closely support the experimental efforts. The center is engaged in a variety of educational activities, notably the development aterials science teaching modules aimed at the high school level and the training of secondary teachers in use of the modules. The Center supports well maintained shared experimental facilities, which are accessible to outside users and also supports interactive efforts with industry and other sectors.

Participants in the Center include 17 senior investigators, 3 postdoctoral associates, 14 graduate students, 10 undergraduates, and 6 technicians and other support personnel. Professor Clyde L. Briant directs the MRSEC.